CAREER: Computer Modeling of Bone

9625030 Keaveny The goal is to develop a comprehensive program in orthopaedic biomechanics at UC Berkeley by integrating research with teaching at both the undergraduate and graduate levels. Developments from the proposed computatinal research will be incorporated into an existing undergraduate class in biomechanics by way of introducing a laboratory-based computer project. Other teaching objectives include: development of a new graduate course in computational biomechanics; introduction of research seminars for undergraduates and graduates to assist in career choices; inclusion of undergraduates and graduates in the proposed research; expansion of research and teaching collaboration between the Departments of Mechanical Engineering at UC Berkeley and Orthopaedic Surgery at UCSF; and development of short videos of experimental procedures and a CD ROM-based textbook for the undergraduate biomechanics class. The major research goal is to develop a computational framework for the study of the biomechanics of trabecular bone and to use this framework to address a number of fundamental issues on the mechanical behavior of this complex biological tissue. These issues are concerned primarily with the relationships between the mechanical behavior of tissue at the microstructural level vs. the mechanical properties at the whole specimen level. Specifically, relationships between locations of maximum stress and strain within the specimen vs. trabecular porosity and architecture will be investigated as well as the failure modes that accompany these trends. The sensitivity of these trends to anatomic site, damage, bone loss, variations in tissue properties, and loading modes such as tension, compression, shear, off-axis, and multi- axis will also be determined. In collaboration with researchers from Lawrence Livermore National Laboratory, capabilities will be developed to perform three- dimensional "high-resolution" finite element models of 40 trabecular bone spe cimens, using massively parallel computation on models with up to 100 million elements. The modeling technique will be prospectively validated against experimental data for an additional 40 specimens of trabecular bone taken from a range of anatomic sites. Finite element parameter studies will then be performed to address the specific research objectives. Results from this project will be relevant to biological form-function relations in trabecular bone, aging, diseasae, trauma, drug development, and artificial bone substitutes. The computational developments will also improve the ability to perform stress analyses on any geometrically complex structure, even beyond the realm of bioengineering. ***